Linkage of Protein Folding and Assembly to DNA Recognition

Mossing
MCB 9874613

1. Technical

Protein folding, assembly and conformational change are coupled to
operator recognition by the Cro repressor of bacteriophage lambda. Cro
is among the simplest and most studied DNA binding proteins. A dimer of
66 residue subunits is the functional repressor. Recent work from the
PI's laboratory indicates that the relevant free species is not a dimer,
but a folded monomer. Protein assembly is therefore an integral step in
operator binding. Dimer interface residues undergo substantial
rearrangement in formation of either the monomer or the Cro-operator
complex. The overall goal of this proposal is to quantify the
contributions of linked folding, assembly and conformational processes
to operator binding. The Cro monomer predominates at the nanomolar
concentrations relevant for the DNA binding reaction, but becomes a
minority species at the micromolar to millimolar concentrations that are
convenient for spectroscopy. Thermodynamic and mutant studies have lead to
the hypothesis that it resembles an engineered Cro variant in which
dimerization has been blocked by an insertion. If this hypothesis is
correct, the natural assembly mechanism of the Cro dimer involves the
exchange of equivalent intramolecular contacts for intermolecular
contacts, a "domain swap". Recent data on single-chain dimers
expressed from fused tandem Cro genes suggests that dimer assembly is a
limiting step in the formation of Cro-operator complexes. Objective 1 is to
characterize the monomeric Cro species. a) Assays for the monomeric
species will be developed. Monomeric variants will be identified in genetic
and affinity chromatography screens of combinatorial protein expression
libraries. Dimer dissociation will be monitored by fluorescence and
sedimentation equilibrium. b) Protein sequences and solution conditions
will be identified to populate the native monomer at equilibrium and as
kinetic intermediates. c) The structure and dynamics of the monomeric
species will be characterized by spectroscopy. The thermodynamic and
genetic stability profiles of the Cro monomer and engineered monomers will
be compared. Objective 2 is to determine the mechanism of assembly of Cro
dimers. Stopped-flow fluorescence and circular dichroism will be used to
study protein folding and assembly reactions. The kinetics of DNA binding
will be determined by spectroscopic and electrophoretic mobility shift
assays. Objective 3 is to determine the energetic consequences of linkage.
Isothermal titration calorimetry will be used to compare the energetics of
DNA recognition by engineered monomers, covalent dimers and wild type Cro
proteins. The contributions of linked folding and assembly equilibria and
systematic variations in the physical linkage between subunits will be
assessed.

2. General

Proteins assemble at specific sites on DNA to initiate the readout of
genetic information. To complete the expression of genetic information,
polypeptide chains must fold and assemble into functional proteins.
Mechanistic and thermodynamic descriptions of these fundamental
processes will advance our understanding of living systems. This
proposal describes studies of linked folding, assembly and DNA
recognition processes in a simple model system. At low concentrations,
the Cro repressor of bacteriophage lambda exists as isolated inactive
subunits. The unfavorable assembly of pairs of subunits to form the
functional dimer limits operator DNA binding. The coupling of protein
folding and assembly to DNA binding appears to be a key factor in the
regulation of viral development. Three objectives are proposed: a) to
characterize the folded monomeric intermediate, b) to determine the
mechanism of dimer assembly and c) to compare the energetics of DNA
recognition by wild type Cro and artificially engineered variants that
are fixed in either the monomeric or dimeric states. Techniques to be
used include directed and combinatorial mutagenesis, production and
characterization of recombinant protein variants, fluorescence, circular
dichroism and NMR spectroscopy, rapid mixing techniques for kinetic
analysis and isothermal titration calorimetry.